RIA: Development of an Implicit CFD Algorithm for Distributed Memory Parallel Computers

The primary objective of this research is to apply a promising new algorithm for computational fluid dynamics (CFD) to a distributed memory parallel computer. The long range goal is to significantly increase the size of flow problems of industrial significance that can be routinely simulated on affordable, high-performance machines. The chosen CFD algorithm , called BLIMM for Block-Implicit Multigrid Method, has been shown to be very efficient for solving recirculating, incompressible flows on meshes with large numbers of grid points. The algorithm is based on the control-volume finite- difference method, which is the basis of several commercial and industrial CFD codes.//